Orbifolds, Higher Spin Curves, and Algebraic Structures

DMS-0204824
Takashi Kimura

The goal of this proposal is to investigate geometric
constructions inspired by the analogy between the moduli
space of curves together with higher spin structures and
the moduli space of curves together with maps into orbifolds.
The former is related to higher KdV integrable hierarchies
while the latter is related to the quantum cohomology of
orbifolds. We will analyze the resulting algebraic structures
suggested by integrable systems and the topology of these spaces.

The KdV equation is a nonlinear equation modeling the behavior
of water waves in a straight channel and is the first of a
hierarchy of equations whose solutions are mutually compatible.
Such hierarchies and their generalizations are intimately
related to surfaces endowed with additional fields possessing
internal symmetries. We will investigate this relationship
and its ramifications.